Motivating interest and academic choices in mathematics through near-peer interactions

Mentoring is a widely accepted strategy for helping youth see how their interests and abilities fit with education and career pathways; however, more research is needed to better understand how different approaches to mentoring impact youth participants. Near-peer mentoring can be a particularly impactful approach, particularly when youth can identify with their mentors. This project investigates three approaches to near-peer mentoring of high-school-aged Hispanic youth by Hispanic undergraduate mathematics majors. Mentoring approaches include undergraduates’ visits to high school classrooms, mathematics social media, and a summer math research camp. These three components of the intervention are aimed at facilitating enjoyment of advanced mathematics through dynamic, experiential learning and helping high school aged youth to align themselves with other doers of mathematics on the academic stage just beyond them, i.e., college.

Using a Design-Based Research approach that involves mixed methods, the research investigates how the three different near-peer mentoring approaches impact youth participants’ attitudes and interests related to studying mathematics and pursuing a career in mathematics, the youth’s sense of whether they themselves are doers of mathematics, and the youth’s academic progress in mathematics. The project design and research study focus on the development of mathematical identity, where a mathematics identity encompasses a person’s self-understanding of himself or herself in the context of doing mathematics, and is grounded in Anderson (2007)’s four “faces” of identity: Engage, Imagine, Achieve, and Nature. The study findings have the potential to uncover associations between informal interactions involving the near-peer groups of high school aged youth and undergraduates seen to impact attitudes, achievement, course selection choices, and identities relative to mathematics. It also responds to an important gap in current understandings regarding effective communication of mathematics through social media outlets, and results will describe the value of in-person mathematical interactions as well as online interactions through social media. The study will result in a model for using informal near-peer mentoring and social media applications for attracting young people to study and pursue careers in STEM. This project will also result in a body of scripted MathShow presentations and materials and Math Social Media content that will be publicly available to audiences internationally via YouTube and Instagram.

This project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants.